In Situ Determination of Thermodynamic, Magnetic, and Transport Properties of Doped and Undoped Thin Film C60

Superconductivity and metallic behavior in thin films of doped C60 will be probed by studying their thermodynamic, magnetic, transport and superconductive tunneling properties, measured in situ over a wide range of temperature encompassing both the superconducting and orientational structural transitions. Fundamental questions concerning the nature of the superconducting coupling, inter- and intra-ball interactions, electron density of states at the Fermi surface, characteristic phonon frequencies, electron-phonon interaction, and the formation of the interball conduction will be addressed through a series of measurements including specific heat, magnetic susceptibility, resistivity, and Hall effect. Superconductive tunneling spectroscopy will be used to characterize the strength and frequency dependance of the superconducting interaction. Thin film deposition techniques will permit the exploration of metastable phases.